Single Atomic Particle at Rest in Free Space (SAPARIS 5)

9732444
Dehmelt
This work consists of a set of experiments that seek to approach the fundamental limits of resolution and accuracy in optical spectroscopy by making use of individually confined ions in purely electric rf traps. Efforts will include improving ion trapping systems, developing better trapping technology, and exploring new ion candidates. Results will have impact on applications in modern navigation and communication as well as on fundamental physical measurements.